Conference on Gap Junctions; Pacific Grove, CA July 6-10, 1987

It is now clear that most animal cells are able to share small molecules with their rs by means of cell-to-cell channels. An impressive set of evidence es that these channels are found in "gap junctions", membrane specializations which have been analyzed with a variety of methods. In addition to the permeability properties and structural features of gap junctions, investigators are currently studying the regulation of the channel, the constituent proteins, the related ge nes, and the role of these intercellular junctions in development and normal tissue function. In this proposal partial support is requested for an International Conferenece on Gap Junctions to be held at the Asilomar Conference Center in California, in July of 1987. Over 100 new and established investigators will assemble to discuss new findings gleaned from a variety of experimental approach es (cell biology, immunology, microscopy, and genetics). The Cell Biology Program recognizing the timliness of this conference, the quality of invited speakers, a nd the emphasis on including young workers, recommends that an award be made.